Oceanographic - Fisheries Equipment Enhancement for the University of Washington's RV Centennial

0443281
Willows
This award to University of Washington's Friday Harbor Laboratories provides instrumentation to improve the oceanographic and fisheries research capabilities of the research vessel Centennial, operated by UW-FHL in support of its research and education missions. The specific items supported with this award include a split-beam echosounder for fisheries assessment, mid-water trawl net and doors, a net monitoring system for benthic and mid-water trawls, upgrades to the existing remotely-operated vehicle including additional thrusters, a forward-looking sonar system and a manipulator arm, and a hydraulic dock crane for loading and off-loading the vessel. These improvements will be of substantial advantage to scientists using the vessel in their research during 2005 and future years.
***